Methods and Applications for PDE-Constrained Optimization

This project involves a three-year program of research on several
fundamental computational issues involved in the parallel implicit
solution of optimization problems with partial differential equation
(PDE) constraints. Such problems arise in many contexts in
engineering and scientific computation, since physical reality is
often expressed through models involving PDEs. Accurate
discretizations of PDEs lead to very large sparse constrained
optimization problems, where at least part of the structure reflects
the discretization. The goals of the research on methods include, but
are not limited to, advancing the state-of-the-art in four fundamental
topics: (1) the formulation and analysis of algorithms for large-scale
nonlinear optimization; (2) adaptive mesh generation for PDEs; (3)
multilevel PDE solvers; and (4) parallel computation. Although each
of these topics can be investigated in isolation, the investigators
believe that the exploitation of their interactions is crucial for the
creation of effective global algorithms. The research is motivated
and guided by three particularly challenging applications: (i)
geophysical inverse problems; (ii) projection methods for evolution
PDEs with constraints; and (iii) constrained level-set methods. These
topics cover a number of important applications of computational
science, including off-shore petroleum exploration, the numerical
modeling of black holes, the modeling of crystal growth and
biomembranes, capturing diffraction effects of waves and path
planning. Two features common to all these applications are that the
PDE constraints must be handled using modern adaptive multi-level
techniques and that the underlying optimization problem is highly
nonlinear and hence nonconvex.

The Investigators are members of the Computational and Applied
Mathematics (CAM) Group within the Department of Mathematics at UC San
Diego. They have a combined expertise in applied mathematics,
numerical optimization, numerical partial differential equations and
parallel computation. An important goal is the development of
software embodying the above algorithms. Software developed as part
of the project will provide an effective method of technology transfer
and will extend the scope and effectiveness of existing codes that
have been developed by the investigators at UC San Diego. The
software component of the project will have a substantial impact on
research involving the modeling of complex systems as it will provide
scientists and engineers with instant access to state-of-the-art
methods. Within the Computational and Applied Mathematics Group, the
Investigators offer a program of instruction and research that
emphasizes the role of computational science in the formulation,
modeling, and solution of problems from diverse and changing areas.
The activities associated with this project will help attract advanced
graduate students into the area of computational science, which plays
a vital role in the study of systems arising in manufacturing,
engineering and the natural sciences.